Presidential Faculty Fellow

9350248 McConnell Neurons migrate to unique positions and form specific axonal connections within the developing cerebral cortex. This Presidential Faculty Fellow award will allow this investigator to explore the cellular and molecular mechanisms that control neuronal migration and axonal growth. Transplantation of developing cells in the cortex will be used to probe the cellular interactions that mold neuronal function. ***